An Integrated Software Testing Laboratory

9352219 Wahl The purpose of this grant is to develop a curriculum in software engineering that focuses on testing, maintenance, and reliability. A software testing laboratory will be developed to provide an environment conducive to teaching, learning, and experimenting in these critical but often neglected areas. The testing laboratory will support increased emphasis on undergraduate instruction in testing and maintenance. A sequence of two software engineering courses is proposed. The second course in the sequence will be devoted to teaching testing and maintenance principles relating to verification, validation, reliability, debugging, reverse engineering, restructuring, and enhancement of software. The testing laboratory will consist of a network of 5 UNIX-based RISC stations. The workstations will be used by students in the software engineering courses and students in a capstone projects course through ongoing experimentation in reliability, testing and maintenance techniques. By developing a model curriculum focusing on the later phases of the software development life-cycle, the project will provide a model for software engineering education in the areas of testing and maintenance. ***